Minority Graduate Research Honorable Mention: Kathryn E. Nava

This special award will give graduate student Kathryn Nava additional flexibility in pursuing her graduate studies and research initiation in geography. The award will permit this student to conduct field research in Costa Rica and Brazil and to attend a professional meeting. Her research will focus on the land- and resource-use decisions of farmers living in tropical forest reserves. This award grows out of a special program in the NSF Biological, Behavioral, and Social Sciences Directorate to enhance the graduate education of previous applicants for minority fellowships who were awarded honorable mention ratings. This award should strengthen research participation in geography and regional science by a promising student who is a member of an underrepresented minority group.